NSF FF: Planning: Empowering Children to Thrive in the Digital Era through Collaborative Learning Experiences

This FINDERS Foundry award engages students and families in understanding AI in safe, age‑appropriate ways. Many young people use AI without learning what it can and cannot do. This project connects high school students with younger learners so both groups gain confidence with AI concepts where high school students learn to teach AI basics, while younger students are guided through support from a near‑peer mentor. Families, educators, and community members design activities collaboratively to improve how AI instruction is created and deployed. The project builds shared understanding around AI concepts so learners see AI as less mysterious and more like a tool for questioning. This project supports stronger communication across age groups, guided by educators and parents, while preparing students for future learning.

This FINDERS Foundry award defines activities, roles, and simple safeguards for using AI alongside a classroom robotic device. The project identifies age‑appropriate foundational skills, specifying a safe and developmentally coherent workflow, and outlines essential evaluation steps for a robust wireframe. Technical work includes developing interaction rules to prevent over‑automation, designing scaffolded activities that integrate AI predictions with hands‑on robotics, and defining minimal‑risk protocols suitable for elementary and middle‑grade settings. The resulting structure provides a baseline for responsible AI exploration that supports digital literacy, physical computing awareness, and safe classroom practice.